South Channel Ocean Productivity Experiment (SCOPEX): Springtime Circulation in the Great South Channel

Continued analysis and interpretation of data collected during South Channel Ocean Productivity Experiment (SCOPEX), an interdisciplinary experiment focused on the North Atlantic right whales, is proposed. Also new modeling to examine the effect of stratification on tidal rectification, relevant to SCOPEX, is requested. This proposal covers only the physical oceanographic component.